US-Mexico Cooperative Research: Statistical Mechanics of Chemical Kinetics and Random Systems

This award will support Professor Sidney Redner of Boston University in a research collaboration with Professor Francois A. Leyvraz of the National Autonomous University in Cuernavaca, Mexico. The investigators intend to study a wide-range of kinetic and dynamic phenomena, based on approaches using modern statistical mechanics. A major goal of the research is to elucidate, in general terms, the role of fluctuations in simple diffusion-controlled reactions, as well as slow relaxation phenomena in both reversible and irreversible chemical reactions. In addition, the researchers will seek a better understanding of the fundamental physical laws underlying multi-fractality for systems such as the random resistor network and a class of physical processes under random systems that encompass hydrodynamic dispersion and filtration. Understanding the kinetics of diffusion-controlled reactions is an important basic science problem with a wide variety of applications, such as trapping and relaxation processes in condensed-matter, aggregation and gelation processes, and chemical reactor engineering. Application of modern and powerful tools, such as scaling and the renormalization group, should yield further insights into these processes. The study of random system is a much more recent area of research, the effects of disorder giving rise to a variety of new physical phenomena, as well as posing fundamental and enduring questions. The Mexican side will contribute a strong background in the area of diffusion and aggregation processes while the U.S. side brings to the collaboration expertise with statistical mechanics and the study of random systems.